Support for the Operation of the Nuclear Structure Research Laboratory (Physics)

This grant supports research using the newly upgraded MP tandem Van de Graaff accelerator, a variety of experimental equipment, and a unique recoil mass spectrometer, at the University of Rochester's Nuclear Structure Research Laboratory. Experiments will include studies of nuclear shapes by Coulomb excitation, of heavy-ion induced transfer reactions, of nuclear isomers on a microsecond timescale, the spectroscopy of neutron deficient nuclei particularly the light krypton isotypes, of hyperine interactions, of correlated two photon decay in heavy-ion reactions, of breakup processes in 7Li- induced reactions, of sub-barrier transfer, and of heavy ion reaction mechanisms. In addition, accelerator mass spectrometry will be investigated in a wide variety of fields including geology, hydrology, cosmochemistry, Ca-41 dating of old bones, materials research and nuclear reaction cross sections. Some of the work involves extensive collaborations with outside users.